MRI: Acquisition of a Genetic Analyzer for Research, Research Training, and Education at Indiana University South Bend

An award has been made to Indiana University in South Bend under the direction of Dr. Andrew F. Schnabel for the acquisition of a genetic analysis system for research and education in molecular biology and biotechnology. The instrument will be used by a number of faculty, many of them new in the past few years, in research in biology and chemistry departments. The system will be used for DNA sequencing and genotyping if several projects, including studies of pollen gene flow in acacia trees, to identify fungi infecting plants, and in the study of genes controlling metabolism in fruit flies and freshwater hydras. The instrument system will be used in teaching modules in a number of classes, and students will be able to conduct research projects under the direction of faculty. The instrument will be used to recruit women and minority students into the science curriculum.